Mathematical Sciences: Funding for World Congress on Grand Challenges in Computational Medicine at the Hyatt Regency Hotel in Austin, Texas, April 24-28, 1994

9314313 Witten This award will partially support participation junior researchers and postdocs in the First World Congress on Computational Medicine, Public Health and Biotechnology, to be held in Austin, Texas, April 24-28. This congress is being organized by the Center for High Performance Computing at the University of Texas. The objective of this conference is to bring together a transdisciplinary group of both junior and senior researchers in the field of computational biology and medicine to present their work. The performance of current high performance computing systems allows researchers to begin to model biological complexity with more realistic models. ***